Collaborative Proposal: Ecophysiological Instruments for Measuring Biotic Climate Impacts Across Western Field Stations

Climate change has widespread regional impacts on diverse biotic systems but most field stations are not yet instrumented with automated data collection systems that would allow integrated measurements of ecophysiology of plants and vertebrates at micro-climate scales needed for detailed studies of physiology, ecology, behavior, evolution and ecosystems, both locally and across large regions. The central hypothesis motivating this instrument investment is that the risk of extinction of organisms due to climate change arises from: a) the direct effects of climate, acting via evolved physiological adaptations that exacerbate extinction risk, and b) the cascading effects of climate change impacts on plant diversity and habitats. These data, together with research that uses them, will allow us to forecast future climate impacts on biotic systems, and to eventually assess historical impacts of climate in and around each of the field stations. The Institute for the Study of the Ecological and Evolutionary Climate Impacts (ISEECI) organizes diverse scientists across the UC System and are integrating these studies with the scientists using Northern Arizona University's Southwest Experimental Garden Array (SEGA). This array of ecophysiological plant and animal sensors will ensure cross-site consistency and comparability at a sufficiently large spatial scale to address regional impacts of climate on coastal, central valley, montane and desert ecosystems of the Southwest.

This new sensor network will instrument 12 sites in the California and 8 sites in Northern Arizona with data loggers and sensors designed to measure environmental parameters relevant to a wide range of animal and plant species. Selected conifers and coastal redwoods will be monitored for sap flow and soil temperature and moisture, and more open grassland/forb and shrub communities with soil temperature and moisture sensors as well as surface temperature at biologically salient heights to complement the existing system of upgraded weather stations already present at NRS and SEGA sites. Temperature sensors will collect similar data on environmental temperatures of endothermic and ectothermic animal taxa, and install phenocams to record phenological changes in trees driven by climate change. The system can be upgraded with new sensors, is expandable with respect to the kinds of data we gather and biotic systems we can instrument, and will be very adaptable for future research. The instruments will capture salient measurements of temperature and drought impacts on terrestrial systems that will allow a unified analysis of ecosystem functioning in the face of changing climate, adding scientific value to each individual field station with a more in-depth biotic record of historical change, and also across the system of field stations enhancing collaboration across the west coast and southwest region of the US. Sensor data will be available immediately online to all ISEECI and SEGA scientists groups, and once fully operational to other researchers. Integration with education and public outreach will give hundreds of students critical messages about climate change and using science to help mitigate its impacts. NAU and the UC system provide graduate and undergraduate students with many experiential learning opportunities in environmental sciences, and detailed, long-term data will supplement and contextualize classwork and research projects. UC and NAU actively work to enhance student diversity: NAU has particular expertise in reaching Native American students, while the Hispanic representation at universities in both states is increasing and being actively incorporated into campus programs and labs.